Acquisition of a 500 MHz NMR Spectrometer for Structure Analysis of Biomolecules

This proposal requests funds for the purchase of a 500 MHz NMR spectrometer plus computer, Skywarrior array processor, digital plotter, and laser printer to be used for protein structural studies by a group of four primary investigators from the Biophysics Research Division of the Institute of Science and Technology at the University of Michigan. The requested NMR will be used in the development of improved methodology, and the techniques will be applied to small proteins. Particular emphasis will be given to small proteins that do not crystallize and to proteins with indications of differences between crystal and solution structure. Additionally the effects of site- directed mutagenesis on conformation, dynamics, stability, and folding of proteins will be investigated. Dr. Wagner's accomplishments in the field of 2-D NMR applied to problems of protein structure-function are extremely impressive; he is one of the world leaders in the area.